Loyola/Aspira Summer Science Camp

Loyola University Chicago, in conjunction with Aspira of Illinois, offers a bilingual (English/Spanish) six week, commuter Summer Science Camp integrating computer science, engineering, and physics for rising seventh through ninth grade "High ability/low opportunity" hispanic students. A subsequent academic year follow-up program is also provided. The interdisciplinary activities begin with students being introduced to basic computer architecture, after which they assemble IBM-compatible microcomputers for subsequent use in the program. Students are guided through experiments in three district labs: Digital electronics, Engineering design and control, and computer science programming, where computer concepts are introduced through programming in the Pascal language. Summer sessions include career-oriented field trips to the facilities of Argonne National Laboratories, Northwestern University, Chicago Research & Trade (a securities trading firm), and People's Gas. Students earn high school course credit through the gifted program of the Chicago Public Schools.